The Historical Transformation of Cultural Institutions

This research examines the founding of three kinds of cultural institutions in the United States: museums, resident opera companies, and resident orchestras. The principal investigators will examine the influence of a wide array of social, economic, and political changes on the founding of cultural organizations in a representative sample of counties across the nation. In contrast with European societies, which had rich cultural traditions, Americans were initially suspicious of high culture and, moreover, were preoccupied with the tasks of developing industry and agriculture, and contending with the problems of growing cities and immigration. Once precedents for culture institutions were established, however, the rate of increase in museums, opera and orchestra companies was extraordinarily great. This research will investigate the conditions under which these cultural institutions came into being, including the effects of major national events (such as wars and recessions). One thesis to be tested is that the conditions that fostered culture in the early 19th century largely relate to the inequality of resources, but other influences (such as education) increasingly prevailed. This study will contribute to an understanding of how major cultural institutions were initially established and developed over time.